An Electromagnetic Compatibility Laboratory

Engineering - Electrical (55)

The project is developing a laboratory for an existing two-course sequence in electromagnetic compatibility (EMC) and in the senior design projects in this area. Industrial laboratories and the labs at other academic institutions serve as models for the University Michigan-Dearborn lab. Because the institution is in the heartland of the US automotive industry, the experiments emphasizes automotive applications. The laboratory is providing hands-on experience with experiments on radiated emission, radiated immunity, conducted emission, and conducted immunity EMC testing. The evaluation uses student and graduate surveys that are conducted with assistance from the University's Center for Engineering Education and Practice and an industrial advisory committee. Dissemination plans include posting information on the laboratory web site and publishing conference papers and journal articles.